Fourteenth East Coast Operator Algebras Symposium; Loyola University of Chicago; October 1-2, 2016

This award provides funding to help defray the expenses of participants in the "Fourteenth East Coast Operator Algebras Symposium" that will be held October 1-2, 2016, on the campus of Loyola University of Chicago.

This conference is the fourteenth installment of the East Coast Operator Algebras Symposium (ECOAS), a series that annually brings together a diverse group of mathematicians whose primary research interests are in the theory of operator algebras. The main foci of the 2016 event are the following: deformation/rigidity theory; noncommutative geometry; subfactor theory; operator algebras and geometric group theory. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work. More details about the conference will be available at http://www.math.vanderbilt.edu/~ncgoa/conferences.html.